RUI: Collaborative Research: Trait differentiation and local adaptation to depth within meadows of the foundation seagrass Zostera marina

Understanding how species cope with spatial variation in their environment (e.g. gradients in light and temperature) is necessary for informed management as well as for predicting how they may respond to change. This project will examine how key traits vary with depth in common eelgrass (Zostera marina), one of the most important foundation species in temperate nearshore ecosystems worldwide. The investigators will use a combination of experiments in the field and lab, paired with fine-scale molecular analyses, to determine the genetic and environmental components of seagrass trait variation. This work will provide important information on the microevolutionary mechanisms that allow a foundation species to persist in a variable environment, and thus to drive the ecological function of whole nearshore communities. The Northeastern University graduate and Keene State College (KSC) undergraduate students supported by this project will receive training in state-of-the-art molecular techniques, as well as mentorship and experience in scientific communication and outreach. A significant portion of KSC students are from groups under-represented in science. Key findings of the research will be incorporated into undergraduate courses and outreach programs for high school students from under-represented groups, and presented at local and national meetings of scientists and stakeholders.

Local adaptation, the superior performance of "home" versus "foreign" genotypes in a local environment, is a powerful demonstration of how natural selection can overcome gene flow and drift to shape phenotypes to match their environment. The classic test for local adaptation is a reciprocal transplant. However, such experiments often fail to capture critical aspects of the immigration process that may mediate realized gene flow in natural systems. For example, reciprocal transplant experiments typically test local and non-local phenotypes at the same (often adult) life history stage, and at the same abundance or density, which does not mirror how dispersal actually occurs for most species. In real populations, migrants (non-local) often arrive at low numbers compared to residents (local), and relative frequency itself can impact fitness. In particular, rare phenotypes may experience reduced competition for resources, or relative release from specialized pathogens. Such negative frequency dependent selection can reduce fitness differences between migrants and residents due to local adaptation, and magnify effective gene flow, thus maintaining greater within-population genetic diversity. The investigators will combine spatially paired sampling and fine-scale molecular analyses to link seed/seedling trait variation across the depth gradient at six meadows to key factors that may drive these patterns: local environmental conditions, population demography, and gene flow across depths. The team will then experimentally test the outcome of cross-gradient dispersal in an ecologically relevant context, by reciprocally out-planting seeds from different depths and manipulating relative frequency in relation to both adults and other seedling lineages. The possible interaction between local adaptation and frequency-dependence is particularly relevant for Zostera marina, which represents one of the best documented examples of the ecological effects of genetic diversity and identity. Further, a better understanding of seagrass trait differentiation is not simply a matter of academic interest, but critical to successful seagrass restoration and conservation.